Mathematical Sciences Computing Research Environments

PINKHAM DMS-9627870 The Department of Mathematics at Columbia University will purchase Unix workstation equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects in the areas of algebraic geometry and number theory, including in particular: a project by David Bayer on toric methods for integer and mixed programming, a project by David Bayer on Galois representations and Hecke eigenclasses of congruence subgroups, a project of Ramanujachary Kumanduri on primarity testing and factoring using modular forms and a project of Dan Lieman on the use of automorphic forms to construct cryptographic systems.